Regularity Theory for Partial Differential Equations with Super-critical Nonlinearities

PI: Vladimir Sverak, University of Minnesota - Twin Cities
DMS-0200326

***************
Proposal "Regularity Theory for Partial Differential Equations with
Super-critical Nonlinearities" by V. Sverak

Abstract:

In this proposal we suggest to study open problems in regularity
theory of the following partial differential equations:
1. strongly elliptic systems arising as Euler-Lagrange equations
for multiple integrals in the Calculus of Variations;
2. three-dimensional Navier-Stokes equations and some related
model equations; and
3. Complex Ginzburg-Landau Equations and Landau-Lifschitz equations.
The regularity theory for these equations is mainly governed by two
factors: the smoothing properties of the linearized operator,
and the tendency of the non-linear part to produce singularities.
In all the cases above there is a certain critical dimension
below which (and, in many cases, at which) the natural energy
estimates for the equations together with smoothing properties of the linearized operator
are sufficient to guarantee regularity of solutions. For most
of the equations above the critical dimension is two. The situation
is more complicated above the critical dimension, when the specifics
of each equation come much more into play, and not many results
are known. The research will concentrate on problems in this
relatively unmapped area.

The study of regularity theory for Partial Differential Equations
(PDE) is usually motivated by the following factors:
(1) A good regularity theory can serve as an important check that
a PDE is appropriate for modeling a given phenomena.
(2) The more information we have about regularity of solutions of
a given PDE, the better chance we have to design a good numerical
method for calculating its solutions on a computer. It is no
coincidence that the equations for which we can calculate solutions accurately are more or less exactly those for which we have a good regularity theory. (Confirming that "There is nothing quite so practical as a good theory".) Roughly speaking, the more we know about solutions, the easier it is the avoid some of the many pitfalls into which numerical simulations can fall.
The work suggested in this proposal will address basic open problems
in regularity theory for important classes of equations with strong
non-linearities. Many of these equations (such as the
Navier-Stokes equations, or the Landau-Lifschitz equations) are of
considerable practical interest.

***************************************